Travel Support For ACM SIGCOMM '98 Conference

The 1998 ACM SIGCOMM Conference on Applications, Technologies, Architectures, and Protocols for Computer Communication will be held in Vancouver, British Columbia, from September 2-4, 1998. This conference is the premier technical meeting that examines the state-of-the-art in computer networks and communications. This proposal request funding to assist fourteen United States-based graduate students in attending this meeting. Participation in conferences such as SIGCOMM is an extremely important part of the graduate school experience, providing the opportunity to interact with more senior researchers and be exposed to leading edge work in the field. The support requested in this proposal will enable the participation of students who would otherwise be unable to attend SIGCOMM'98.